Quantitative Analysis of Growth Defects in II-VI Semiconductors by X-Ray Diffraction

The objective of the investigation is to study the nature of the defects in cadmium telluride and cadmium telluride with zinc and manganese using x-ray diffraction techniques. The study concentrates upon the use of dynamic diffraction extinction distance for delineation of subgrains, the measurement of absolute diffracted intensities to assess the relative contributions of primary and secondary extinction, and the use of triple crystal diffraction techniques to separate the dynamic and kinematic diffraction intensities. The specimens will be grown as bulk crystals using the vertical Bridgement method.